Mathematical Sciences: Research in Graph Theory and Combinatorics

This project is on problems in matroid theory and graph theory, including (1) Tutte functions, (2) biased graphs arising from gains, (3) matroid isomorphisms of biased graphs, (4) forbidden-minor characterizations of signed graphs, (5) surface duality for signed graphs, (6) generalized two-graphs, and (7) line graphs. Emphasis will be given to developing general theories in the areas under investigation. Priority will be given to (1) because of its possible importance to knot theory.